NeTS-NOSS: Secure, Robust and DoS-Resilient Code Dissemination in Wireless Sensor Networks

Wireless sensor networks are ideal candidates for a wide range of
applications, such as monitoring of critical infrastructures, data
acquisition in hazardous environments, and military operations. It is
usually necessary to reprogram sensor nodes after they are deployed
through wireless links. This project is aimed at investigating secure,
robust, and DoS-resilient remote programming of sensor nodes through
wireless links. First, this project develops a novel reliability
mechanism that integrates proactive transmission and NACK mechanisms
to tolerate packet losses during code dissemination efficiently.
Second, this research integrates efficient authentication mechanisms
into this approach to guarantee the integrity of disseminated code
images. Third, this project develops weak authentication mechanisms
to mitigate the potential DoS attacks aimed at consuming the resources
(particularly the battery power) of sensor nodes. Fourth, this project
extends the above techniques to provide secure, proactively robust,
and DoS-resilient code dissemination in hybrid sensor networks, where
there are both high-end nodes (e.g., PDAs, Intel mote 2) connected
through high-capacity wireless links (e.g., 802.11) and low-end nodes
(e.g., MicaZ motes) connected via low-power wireless links (e.g.,
802.15.4). To achieve a thorough understanding of these techniques,
this project implements all the proposed techniques and evaluates them
in a hybrid wireless sensor network test-bed named WiSeNeT at North
Carolina State University.